Participation in the WOCE Indian Ocean Expedition: Lines 14-5W-7C and I10

9401343 Toole This project is a contribution to the Indian Ocean Expedition (IOE) of the World Ocean Circulation Experiment (WOCE). In it, the PI will participate as a co-principal investigator on two separate legs of the hydrographic survey, along the lines I4-5W-7C, around Madagascar, I10 between Indonesia and Australia, and I-1, from Indonesia to Somalia. The PI will then participate in the analysis and synthesis of the data on these and other sections collected as part of the IOE. Objectives are to describe water characteristics, velocity structure, and transport of the boundary currents thought to exist in the region. The observations will provide the foundation for the first measurements of the meridional overturning rate in the Indian Ocean. ***